Summer Symposium in Real Analysis XXVI, Washington and Lee University, June 25-29, 2002, Lexington, Virginia

ABSTRACT

PI: Evans, Michael J
Proposal: DMS-0201702
Institution: Washington & Lee University

This proposal requests funding for a Summer Symposium in Real Analysis,
that is part of an established series of conferences in Real Analysis.
This conference has a long and successful history and it is expected that
it will attract a fair number of graduate students and young researchers
form all of the US. A substantial part of the award funds will be used
to enable them to attend the Symposium.

This symposium will highlight lectures by experts, provide a dynamic forum
for the discussion of research problems, and allot prime speaking time to young
researchers.